Global Change Activities of the National Research Council

9417137 PERRY This award is a renewal of an award to the National Academy of Science to support the work of the National Research Council's Board on Global Change (NRC/BGC). Most of this award ($459,060) provides funds to enable the NRC/BGC and other NRC committees and boards to continue to provide assistance to agencies participating with NSF in core functions of the NSTC Committee on Environment and Natural Resources's Subcommittee on Global Change Research (CENR/SGCR) in the development and evaluation of the U.S. Global Change Research Program (US/GCRP). Through this additional funding, which was contributed by agencies participating as members in the CENR/SGCR, the NRC/BGC and related NRC boards and committees will continue to fulfill their responsibilities in the following areas: 1. Provision of advice to the CEES/SGCR on the U.S. Global Change Research Program (US/GCRP); 2. Provision of periodic reviews of the US/GCRP; 3. Service as a liaison between the U.S. and other nations in international planning efforts; and 4. Establishment and operation of special ad hoc groups to address issues of special concern regarding the US/GCRP. In addition to continuing these core activities, an additional $76,090 is made available to NAS through interagency transfer of funds from NOAA and funds from NSF to support a National Forum on Environment and Natural Resources R&D held in late March 1994 at the request of the White House Office of Science and Technology Policy. Funds for these activities have been provided by NSF, the National Oceanic and Atmospheric Administration, the National Aeronautics and Space Administration, and the National Institute for Environmental Health Statistics.